Workshop on Evaluation, Repair, and Retrofit of Structures, to be held at the National Institute of Standards and Technology (NIST), Gaithersburg, MD on 5/12-14/90.

This proposal is to organize a US-Japan workshop in Evaluation, Repair, and Retrofit of Structures to be held prior to 22nd meeting of US-Japan Panel on Wind and Seismic Effects. The meeting will provide an opportunity for exchange of the latest information in areas of rapidly developing technology and research needs in both countries.